Industry Initiatives in Mathematics and Science (IISME) Academy Programs

Through a Lawrence Hall sponsored partnership, 151 high school teachers from 35 school districts in the San Francisco Bay area have had summer jobs in 40 industrial firms. From these experiences these science, mathematics, and computer science teachers have carried a broader understanding of the applications of modern science and mathematics back into their classroom teaching. In 1986 an Industry Initiatives for Science and Mathematics Education Academy of Fellows was established to promote further exploitation of their industrial experience in Bay area classrooms. Through this project the Academy teachers will develop and test instructional materials based on their summer assignments in industry which they can use themselves and share with other teachers, explore ways to form an electronic network between themselves, and provide seminars which will carry university credit. The summer experiences in industry have already proven valuable, but this project will explore ways to enhance the value of such work experiences further through this variety of continuing activities. Cost sharing by the partners will total 75% of the NSF funding.